2nd U. S. - Japan Workshop on Urban Earthquake Hazards Reduction; July 27-29, 1988; Shizuoka, Japan

EERI's Committee on Planning for Earthquake Hazards will conduct a cooperative US-Japan 3 day workshop on the subject of planning for urban earthquake hazards reduction. This will be the second such workshop, following a first held at Stanford University in August 1984 in conjunction with the 8th World Conference on Earthquake Engineering (8WCEE). This second workshop (2USJW) will be held in Shizuoka, just prior to the next World Conference (9WCEE, 2-9 August 1988), and will focus on problems of earthquakes at the urban scale, examining in the context of mitigation efforts on-going in the US and Japan: 1. Policy Problems of Earthquake Prediction 2. Public and Private Preparedness 3. Vulnerability Assessment/Estimation of Earthquake Damage 4. Fire/HazMat Following Earthquake 5. Search and Rescue/Emergency Response 6. Recovery/Repair/Reconstruction/Rehabilitation 7. Governmental Response to the Earthquake Problem 8. Insurance The format will include invited papers on key topics, working group discussions and a final plenary session for summaries of the working groups' findings. A workshop proceedings will be prepared by the Japanese co-sponsors and disseminated to attendees and others in the field.